East Coast Optimization Meeting (ECOM) 2019

The award provides participant support to the East Coast Optimization Meeting (ECOM) to be held at George Mason University, Fairfax, VA. Date: April 4-5, 2019. The goal of ECOM is to introduce students and early-career researchers to current trends in optimization as well as to provide a strong networking environment between academia, industry, and the national laboratories. The focus of first meeting is Stochastic Optimization. Stochastic optimization problems arise in virtually all science and engineering fields. Common examples of stochastic optimization problems are: (i) determining an allocation of financial assets that minimize the potential for loss subject to market variability; (ii) controlling injection wells in second-stage oil recovery to maximize the net present value of a reservoir in which the subsurface rock properties are unknown; and (iii) designing a photonic meta-material to maximize light absorption subject to uncertain operating environments. For each of these problems, a decision maker must choose an allocation/control/design prior to observing the uncertain outcome (i.e., decisions are deterministic). As a result, one must properly quantify the risks associated with each decision in order to control the outcome variability. This need has led to the modern theory of stochastic and in particular risk-averse optimization. The meeting will provide a unique opportunity for graduate students, postdocs and other early career scientists to take courses from two of the best researchers in stochastic optimization and thus help train next generation of scientists. In addition, there will be four invited talks from the experts in the field and the students and postdocs will have an opportunity to share their work via contributed presentations. The knowledge gained during the meeting will be of relevance to fields such as finance, physics, biology, data science, machine (deep learning), and engineering. The meeting has an affiliation from Association of Women in Mathematics (AWM).

Accurately representing the uncertainty when solving stochastic optimization problems often requires an enormous number of samples, which traditionally resulted in intractable nonlinear optimization problem. However, owing to the recent advances in high-performance computing, computational simulation and numerical optimization, the numerical solution of such problems has become computationally feasible. Additionally, this past year, four stochastic optimization researchers received prestigious awards including two Dantzig Award winners (one of our keynote speaker was among the two), a Khachiyan Prize winner and a Farkas Prize winner. For these reasons, the topic of stochastic optimization is very timely for the inaugural East Coast Optimization Meeting. The proposed meeting has the potential to advance knowledge and understanding in modeling, optimization, numerical analysis, implementation and software development. Stochastic optimization encompasses numerous aspects from statistics, probability theory, optimization and variational analysis, convex analysis, and applied mathematics. The meeting will stimulate new developments in these important areas of mathematics. The tutorials and invited talks will focus on real life problems and will discuss new optimization solvers to handle these problems. Thus the attendees can tackle new set of challenging problems. The variety of topics discussed in the meeting, stochastic optimization, modeling, partial differential equations, risk averse optimization is of much wider interest. For instance, these are relevant in finance, physics, biology, data science, and engineering. Participation from all these fields is expected. The ideas created in the meeting will be actively disseminated. We will upload the lecture notes on the conference website. These resources will help create new graduate courses. More details about the meeting are available at http://math.gmu.edu/~hantil/ECOM/2019/.